United States-New Zealand Workshop on Civil Infrastructure Systems: Management of Civil Infrastructure Systems in Multi-hazard Environments

0100465
Jones

This award supports a joint US-NZ Workshop on Civil Infrastructure Systems (CIS) Research, to be held in October 2001 in Christchurch, New Zealand.

The goal of the Symposium is to provide an expert forum for identifying and comparing common problems and solutions, for exchanging ideas on recent and future developments, and for promoting international cooperative research in all areas of Civil Infrastructure Systems. The Workshop will last four days. Two days will involve invited presentations; the third day will consist of workshop sessions; the fourth day will involve a field visit to the City of Wellington. Prepared papers by invited representatives from the US and NZ will exemplify contemporary issues in Civil Infrastructure Systems, with an emphasis on asset planning and management in a multi-hazard environment.